Ginzburg-Landau Models

The Ginzburg-Landau model serves as a basic paradigm for a
broad spectrum of subjects in pattern-forming systems in general
and in superconductivity in particular. The investigator studies
several fundamental theoretical problems related to this model.
Some of the specific problems that he examines lie at the heart of
the Ginzburg-Landau formalism. These include the understanding of
time-dependent formulation and of thermal fluctuations, together
with the elucidation of the behavior of superconductors near the
sample's boundary. Other problems studied are related to
transport phenomena in thin wires with Joesphson junctions. Such
structures are crucial in several basic superconducting devices.
The investigator suggests a research direction that leads to the
introduction of novel junctions. Finally, he analyzes the
existence of stable patterns in different systems (including
liquid crystals and superconductors with impurities) where the
stability is not generated by an acting external force, but by the
topology of the sample.

One aspect of the project is to enhance the fundamental
understanding of superconductivity. A second aspect of this
project is to study transport in extremely narrow networks. While
the main motivation is to consider such transport processes in
superconductors, these types of problems are relevant to many
areas. For example, quantum wires are among the current leading
models for quantum computers, microchannel chips are developing
into fast and efficient tools in chemical analysis, etc. The work
in this area will have an impact on certain directions in
nanotechnology. A major theme of the project is to exploit the
similarity between the mathematical methods used in different
applications, such as optics, liquid crystals, and
superconductivity, in order to apply techniques developed in one
of these areas to another one.